RUI: Chemical Communication in the Larval Eastern Tent Caterpillar

The use of chemical signals (trail pheromones) to coordinate food-finding activity has been well documented among the social insects, notably the ants and termites. Studies now indicate that some species of gregarious caterpillars also use trail pheromones to communicate. Very little is known of the significance of communication among caterpillars, and only a single larval trail pheromone has been previously identified. This collaborative study will enhance our knowledge of chemical communication in caterpillars by focusing on both the chemical and behavioral bases of exploratory and recruitment trail-marking in the eastern tent caterpillars. Drs. Fitzgerald and Webster will investigate the behavioral mechanisms that underlie trail- marking and trail-selection behavior, and will attempt to identify and synthesize the specific chemical compounds that are used in communication. To the extent that it is successful, this study will be the first to determine the chemical and behavioral bases of bilevel system of trail-based communication. The tent caterpillar was selected for study because it is thought to utilize one of the most elaborate systems of trail-based chemical communication found among caterpillars. In addition, tent caterpillars, collectively, are among the most economically important of leaf-feeding insects, causing significant damages to forest and shade trees throughout the Northern Hemisphere. Present knowledge of these insects is too superficial to assess the potential role of larval pheromones in ecologically-sound programs of pest management, but the basic chemical and behavioral studies that Drs. Fitzgerald and Webster will conduct will provide necessary background information for exploring this possibility.